A Workshop for Scientific Issues on Medical Applications of Micro/Nano Powder Injection Molding-Molding, Sintering, Modeling, and Commercial Applications

OISE-0738021 (German, R.M. - Mississippi State University)
U.S. - Korea Workshop for Scientific Issues on Medical Applications of Micro/Nano Powder Injection Molding: Molding, Sintering, Modeling, and Commercial Applications

This award supports a U.S.-Korea workshop on the forming research for nanoscale powders applied to powder injection molding for sub-micron medical and dental device manufacturing. The workshop will focus on the materials processing aspects of composite consolidates in extrusion, powder injection molding, and sintering. Topics will include materials science and medical devices, nanoscale powders, medical and dental device science and engineering, powder injection molding, research and development gap between academic and industrial research, international collaborations and commercialization. The workshop will bring together approximately 33 U.S. and Korean researchers, postdocs, graduate students and undergraduate students. The key Korean collaborator is Dr. Young-Sam Kwon, President of CetaTech. Korean participants come from the Korea Institute of Industrial Technology (KITECH), Korean Advanced Institute of Science and Technology (KAIST), Ajou University, Hangyang University, KINORY, Inc. Research Institute of Industrial Science and Technology (RIST), Sung Kyun Kwan University (SKKU), Pheonix Korea, Misosmile Dental Clinic and CetaTech, Inc.